The Third International Symposium on Robotics Research, Fall, 1985, Gouvieux, France

Travel assistance is provided to the U.S. participants in the Third International Symposium on Robotics Research being held in the fall of 1985 in Gouvieux near Paris, France. The symposium brings together, by invitation only, the leading robotics researchers in the world. The proceedings of these international meetings provide the most up-to-date reference to the current state of robotics research. These conferences play a vital role in bringing robotic researchers together, delivering important papers in this area, and making available in one place yearly reviews of research in this fast moving field.